Paleoclimate Inferred from Lake Sediment Cores in Taylor Valley, Antarctica

Polar Programs, provides funds for a study of sediment cores from the McMurdo Dry Valley lakes. The Dry Valley lakes have a long history of fluctuating levels reflecting regional climate change. The history of lake level fluctuations is generally known from the LGM to early Holocene through 14C dates of buried organic matter in paleolake deposits. However, the youngest paleolake deposits available are between 8000 to 9000 14C yr BP, suggesting that lake levels were at or below current levels for much of the Holocene. Thus, any information about the lake history and climate controls for the Holocene is largely contained in bottom sediments. This project will attempt to extract paleoclimatic information from sediment cores for a series of closed-basin dry valley lakes under study by the McMurdo LTER site. This work involves multiple approaches to dating the sediments and use of several climate proxy approaches to extract century to millennial scale chronologies from Antarctic lacustrine deposits. This research uses knowledge on lake processes gained over the past eight years by the LTER to calibrate climate proxies from lake sediments. Proxies for lake depth and ice thickness, which are largely controlled by summer climate, are the focus of this work. This study focuses on four key questions: 1. How sensitively do dry valley lake sediments record Holocene environmental and climate variability? 2. What is the paleoclimatic variability in the dry valleys on a century and millennial scale throughout the Holocene? Especially, is the 1200 yr evaporative event unique, or are there other such events in the record? 3. Does a mid-Holocene (7000 to 5000 yr BP) climate shift occur in the dry valleys as documented elsewhere in the polar regions? 4. Is there evidence, in the dry valley lake record of the 1500 yr Holocene periodicities recently recognized in the Taylor Dome record? Core collection will be performed with LTER support using a state-of-the-art percussion/piston corer system that has been used successfully to retrieve long cores (10 to 20 m) from other remote polar locations. Analyses to be done include algal pigments, biogenic silica, basic geochemistry, organic and inorganic carbon and nitrogen content, stable isotopes of carbon, nitrogen, and oxygen, carbonate phases, salt content and mineralogy, and grain size. In addition this project will pursue a multi-chronometer approach to assess the age of the core through optically-stimulated luminescence, 226Ra/230Th , 230Th/234U, and 14C techniques. New experimentation with U-series techniques will be performed to allow for greater precision in the dry valley lake sediments. Compound specific isotopes and lipid biomarkers , which are powerful tools for inferring past lake conditions, will also be assessed. Combined, these analyses will provide a new century to millennial scale continuous record of the Holocene climate change in the Ross Sea region.